Internet Connection Project

This project connects the Iowa Valley Community College District to the Internet over a T1 line. The district consists of two community colleges. Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.